Mechanisms for Secure and Robust Agent-Based Distributed Computing

A mobile agent is a program capable of migrating autonomously from
node to node, to perform computation on behalf of a human user. The
mobile agent paradigm can play a significant role in current and future
network-centric applications, especially in the context of the Next
Generation Internet. Security and robustness concerns about mobile
agents are currently identified as the biggest obstacle preventing the
widespread deployment and use of agent-based applications.

The primary objective of the proposed research is to investigate security
and robustness issues in building a mobile agent programming system,
in an open distributed environment, such as the Internet. The proposed
research addresses issues related to programming primitives and
system-level mechanisms for building agent-based applications. The
approach presented in this proposal is based on supporting the mobile
agent paradigm using mobile objects. This raises a number of
research challenges related to protection of host resources, protection
of mobile agents, and secrecy and authenticity of information carried
by agents. It also requires mechanisms for remote monitoring and
control of agents, and recovery from failures. Another related challenge
to be addressed by this effort is in building scalable mechanisms for
naming and locating objects in the network. The proposed research will be
based on the Java language and will use cryptographic techniques to design
protocols to solve several of the security problems. The facilities
provided by Java (such as object serialization, reflection, security
features, etc.) will be used in devising mechanisms for agent mobility and
supporting protection domains for agent execution on remote hosts.
A prototype implementation of a mobile agent system will be built to
serve both as a research infrastructure as well as a demonstration
of the mechanisms to be developed during this effort. The system
will be evaluated using both theoretical and experimental analyses.